Proceedings of Workshop on Very High Energy and Ultra High Energy Gamma Ray Astronomy; Simferopol, USSR; April l5-21, l989 (Physics)

This award is for the support of Proceedings of Workshop on Very High Energy and Ultra High Energy Gamma Ray Astronomy; Simferopol, USSR; April 15-21, 1989. The Crimean Workshop had attracted the attention of the two US High Energy physicists who attended. The proceedings will help disseminate the results presented at the workshop to a larger audience of High Energy physicists and astrophysicists.